NSF Young Investigator

This NYI award will support the research of a promising and accomplished young investigator. His research will include a study of the structure of simple hadronic systems with emphasis on measurements relating to the distributions of quark currents in the nucleon.